Mathematical Sciences: Research in Mathematical Logic

This project includes research in recursion theory, which is the study of relative complexity of computation, constructive mathematics, logic, and their relations to computer science. In the purely recursion-theoretic areas, the major topics are the study of the structure of the complexity degrees of recursively enumerable sets and effectively approximable ones. The complexity theoretic problems connected with computer science include various polynomial-time problem considerations: pure structure theory and applications to algebra, analysis, logic and other areas. The topics involving logic and computer science center on intuitionistic mathematics as the proper framework for extracting verified programs from formal mathematical proofs of existence.